Travel Grant to Attend U.S. - Japan Joint Panel Meeting on Wind and Seismic

On the wake of Hurricane Hugo two issues will be examined in this study: the effect that shelter near or around buildings has on the survivability of the structures; and the degree of wind engineering knowledge being applied to reconstruction. A survey of damaged and destroyed buildings in South Carolina and of the reconstruction process will be conducted and recorded, and a preliminary analysis will be carried out that will be of great benefit to the wind engineering community.